SBIR Phase I: Novel PECVD Single Layer Thin Film Encapsulation for Organic Devices

This Small Business Innovation Research Phase I project addresses the development of a novel flexible thin film encapsulation technology to exceed commercial barrier and cost requirements for both existing and emerging commercial products.

This research if successfully commercialized will enable a sizeable market for large area, flexible electronic products for displays, solid state lighting, photovoltaics, thin film batteries, image sensors, and medical and security devices. Without the required, and currently unavailable at low enough cost, thin film permeation barrier to prevent the degradation of organic devices, these markets will not be realized.